NSF Young Investigator

The research encompasses hot structure analysis and mechanics of composite materials. Under hot structure analysis, failure theories will be developed for materials and structures subjected to severe thermo-mechanical loadings including the effects of thermal shock, chemical changes and phase transformations. Undercomposite mechanics, smart materials will be considered including their behavior, processing and applications.